The Power of Partnerships: EPSCoR in New Hampshire

The University of New Hampshire on behalf of the State of New Hampshire will conduct an 18 month collaborative state-wide planning process involving academia, K-12 education, private sector, and local government as a participant of the NSF Experimental Program to Stimulate Competitive Research (EPSCoR).

The goals of the planning process are to (1) identify barriers to progress and development in science and technology in the state; (2) create a statewide New Hampshire EPSCoR Committee; and (3) establish priorities for research infrastructure improvements in New Hampshire to stimulate competitiveness for federal research and development (R&D) funding.